19th International Conference on the Physics of Semiconductors, Warsaw, Poland, August 15-19, 1988

This grant will provide U.S. scientists with funds to travel to the 19th International Conference on the Physics of Semiconductors to be held in Warsaw, Poland, August 15-19, 1988.